Differential Geometry and Integrable Systems

Abstract

Award: DMS-9972172
Principal Investigator: Chuu-Lian Terng

The principal investigator proposes jointly with Karen Uhlenbeck
to work on the following projects concerning geometric integrable
systems: (1) to understand the symmetries and geometric aspects
of soliton equations, (2) to study the relations among Lax pairs,
bi-Hamiltonian structures, infinitely many commuting
Hamiltonians, Backlund and Darboux transformations, and the
inverse scattering transform, (3) to apply the techniques of
soliton theory to geometric problems, in particular, submanifolds
in symmetric spaces, harmonic maps and self-dual Yang Mills
fields.

The three most well-known soliton equations are KdV, SGE and NLS
equations. The KdV equation describes wave motion in a shallow
canal; the SGE equation arose from plasma physics; and the NLS
equation describes the propogation of light in a fiber optic
cable and is currently used in telecommunication. These
equations also arose in the 19 century differential geometry.
The geometric connection gives interesting methods to construct
more soliton equations and solutions. Many interesting problems
in mathematical physics and geometry are now known to be related
to soliton equations. The main goal of this proposal is to use
geometric method to study soliton equations and apply the theory
of soliton equations to problems in differential geometry.